Foundations of Quantum Mechanics (Physics)

This project will carry out research in the foundations of quantum mechanics. The specific topics are 1) n-particle interferometry 2) possible links between violations of Bell's inequalities and the Aharonov-Bohm effect and 3) possible stochastic features of quantum dynamics.